Semiconductor Single-Photonics Devices and Quantum Optics Information Engineering

The proposal describes a program to exploit semiconductors for quantum optics information devices. Recent work in quantum optics using free-atoms has led to remarkable advances. The main idea of this proposal is to realize the strong coupling effects in semiconductors in a similar manner as that demonstrated in free-atoms. In particular, the PIs propose to investigate the implementation of 3D optical microcavities containing excitonic quantum dots to achieve quantum optics strong-coupling on the single photon-exciton level. Based on it, the conditional quantum phase gate, the basic building block for quantum computation, can be built.